DISSERTATION RESEARCH: Grammatical Encoding during Sentence Production among Native and Non-Native Speakers of Japanese

This project studies basic processing skills involved in learning to speak
a second language (L2). The special focus of this work is sentence
production in learners of Japanese as a second language. For L2 learners
to become proficient speakers, they must have more than passive knowledge
of words and grammatical rules (e.g., that used in reading). They must
learn to use their knowledge to rapidly build new sentences. Because
Japanese has structures that are fundamentally different from English (the
native language (L1) of the L2 learners in this study), transfer from L1
to L2 is difficult and we can better evaluate new production skills. Two
processes essential to fluent production are: fast, accurate word
retrieval and access to the grammatical structures in which words can
appear. These are examined in two steps.

- First, native Japanese speakers performance is examined to establish
patterns of fluent L1 production. Two modes of evaluation are used: (1)
retrieval of the grammatical information linked to words is studied in
experimentally elicited "tip of the tongue" states; (2) grammatical
processes that select case particle words (e.g., subject-marker ga and
object-marker o) are analyzed in naturally occurring and experimentally
elicited speech errors.

- Second, "L2 knowledge" for learners of Japanese is examined. L2 speakers
of different proficiency levels participate in multiple tasks; some tasks
provide data reflecting grammatical knowledge (e.g., sentence judgment
tasks, fill-in-the-blank tests), while others elicit use of grammatical
knowledge (e.g., case particles) during speech. The gap between L2
speakers knowledge and oral performance is examined to reveal their
sentence production processes. This is compared to the L1 data patterns.

Results of these studies will shed light on basic mechanisms common across
languages and on language-specific processes that Japanese L2 learners
must acquire. As we better understand such language performance, we also
gain information that may improve foreign language instruction.